Theory of Strongly Correlated Electron Systems

9629987 Schrieffer Research will be conducted on the theory of strongly correlated electron systems. The field of strongly correlated electrons has attracted a great deal of attention from the physics and materials community since the discovery in 1986 of superconductivity at elevated temperatures. Prior to this time, related phenomena were studied in transition metal, rare earth and actinide compounds as well as in magnetic alloys. In contrast to the traditional electronic band structure approach to solids, these materials require one to include interelectronic correlations in a fundamental manner. In essence, these systems involve the interplay of many coupled phase transitions: metal-insulator, paramagnetic- antiferromagnetic, normal-superconductor and various lattice distortions. This research involves an ongoing program addressing how a microscopic theory of such materials can be constructed which directly relates to experiment. In particular, what is the nature of the ground state and excitations, both spin and charge, in strongly correlated materials? In terms of these excitations, or more generally spectral distributions, what is the effective pairing potential which leads to superconductivity? Why is the pairing order parameter so anisotropic in these materials compared to low temperature superconductors? There has been much debate whether spin and charge degrees of freedom are separate excitations in two-dimensional systems, as they are in one-dimension. These and related questions will be studied using a variety of methods including the coherent state spin functional integral approach, quantum Monte Carlo and exact diagonalization of clusters. With close contact to experiment we hope to make significant progress in understanding these novel and technologically important materials. In addition, we will study the dynamics of electrons moving in space-and time-dependent magnetic fields, both to enlarge the range of experiments on material s curretly carried out in uniform static magnetic fields and to develop methods to treat time-dependent magnetic alloy problems encountered in the coherent state spin functional integral method and its counterparts. %%% Theoretical research will be conducted on a variety of materials problems involving electrons which strongly interact. These types of problems are relevant to many materials of current technological interest such as the high temperature superconductors. Unfortunately, conventional concepts and theoretical methods are not directly applicable. Thus, new concepts and methods need to be developed to understand these materials. The present grant will focus on the development of new techniques and the application of new concepts to this important class of problems. ***